Collaborative Research on the Complex Dynamics of Turbulence and Structure in Magnetized Plasmas

The research examines the effect of long-range correlations in magnetized plasmas. Novel structures, such as avalanches, streamers and blobs appear driven by and in turn affecting the turbulence. The goal is to study these correlations experimentally using the Large Aperture Plasma Device at UCLA and through simulation.